Extension of the Collaborative Project to Revise the Historical Statistics of the United States

The Historical Statistics Project is a major collaborative effort to produce an updated, revised, expanded, and electronically-accessible new edition of the Historical Statistics of the United States. The previous edition of Historical Statistics, now long out of date [U.S. Bureau of the Census, 1975], is a massive, two-volume compendium of 54 chapters on topics touching all of the social, behavioral, humanistic, and natural sciences, including economics, government, finance, sociology, demography, education, law, natural resources, climate, religion, international migration, and trade. The new Millennial Edition of Historical Statistics of the United States will be accessible to researchers, educators, students, and the general public. The renewal award provides continued support for the central management of the project. This support is essential to insure the timely completion of the project and the accuracy and reliability of the text.